Collaborative Research: P2C2--Toward Improved Projections of the Climate Response to Anthropogenic Forcing: Combining Proxy and Instrumental Observations with an Earth System Model

Funding is provided to combine paleoclimate and instrumental observations with a new Earth system Model of Intermediate Complexity (EMIC) to improve constraints on key climate parameters including those governing dynamical and potentially abrupt responses to forcing. Specifically, the research team will focus on dynamical mechanisms associated with the El Nino/Southern Oscillation (ENSO) and the Atlantic Meridional Overturning Circulation (AMOC) using an existing EMIC ("LOVECLIM"). The broader impacts involve supporting postdoctoral scholars and graduate students and contributing to the understanding of abrupt climate change.

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).